Major Research Instrumentation: Acquisition of a High- Performance Computation/Visualization Laboratory for Scientific Research

CDA-9724613 Bansil, Arun Northeastern University Acquisition of a High-Performance Computation/Visualization Laboratory for Scientific Research Northeastern University is acquiring a symmetric multiprocessor, a network of workstations, and a cluster of high-performance graphics workstations to support scientific visualizations, the execution of medium scale science and engineering computations, and the development of scalable codes using standard programming languages and tools. Research areas include high-energy physics, materials science simulations, cosmology, protein dynamics, and large non-linear dynamics systems simulation. Northeastern University plans to include advanced computational techniques involving parallel platforms and languages into existing computational science courses. One of the PIs of the proposal is also a co-coordinator of Academic Common Experience (ACE) at Northeastern University whereby non-science majors are introduced to science and technology. The high-performance facilities will also be available for use by such students. Various departments represented in this proposal are active in outreach activities for local high school teachers and students.